Inverse Spectral Problems in Riemannian Geometry

Abstract

Award: DMS-0072534
Principal Investigator: Carolyn S. Gordon

Inverse spectral geometry is the study of the extent to which the
geometry of a surface or, more generally, of a Riemannian
manifold can be extracted from spectral data. The primary
spectral data associated to a compact Riemannian manifold are the
eigenvalues of the Laplace-Beltrami operator. The investigators
propose to apply recently developed methods to study the extent
to which the eigenvalue spectrum determines the local geometry of
a compact Riemannian manifold. They will also ask the extent to
which additional spectral data such as the spectrum of the
Laplacian acting on differential forms of various degrees
determines the geometry of the manifold. Inverse spectral
problems will be considered on Riemannian orbifolds as well as on
manifolds; orbifolds are the most tractable singular spaces. For
the Schrodinger operator "Laplacian plus potential", the problem
of recovering the potential from spectral data will be studied in
the case of line bundles over tori. In analogy to the case of
planar domains, the lowest eigenvalue of the Laplacian on a
compact Riemannian manifold may be viewed as the fundamental
tone. The question of whether random Riemann surfaces have large
first eigenvalue will be studied using connections between
spectra of Riemann surfaces and spectra of graphs. For
noncompact Riemannian manifolds, the primary spectral data are
the scattering poles; the investigators expect to exhibit
continuous families of isopolar metrics.

In spectroscopy, one attempts to recover the chemical composition
or the shape of an object from the characteristic frequencies of
light or sound emitted. In the case of a vibrating membrane such
as a drumhead, viewed mathematically as a bounded region in the
plane, the spectrum of characteristic frequencies corresponds to
the mathematical notion of the Laplace spectrum. The Laplace
spectrum is also defined for other geometric objects called
manifolds which arise in mathematics and physics. The
investigators, along with Scott Wolpert, earlier constructed the
first examples of differently shaped drumheads (planar regions)
with the same spectrum. Planar regions can differ in their
global shape but locally are identical; i.e., if you look at a
small piece cut out from one of the regions, you can not tell
which region it came from. Recently, the principal investigator
developed methods for constructing geometric objects with the
same Laplace spectrum but which differ in their local as well as
global shape. These methods will be used to investigate which
local geometric properties of manifolds are not spectrally
determined. Additional spectral problems will also be considered
such as the construction of surfaces of arbitrarily large volume
but having bounded fundamental tone.